CSR: Small: Towards High-Performance, Robust, and Secure Live Migration of Virtual Machines

Live migration of virtual machines (VMs) is a key feature of server virtualization that underlies numerous operations in cloud computing platforms such as routine maintenance, load balancing, scaling to handle peak demands, and saving energy. Even though work in both industry and academia has made impressive advances in live migration technology, several important challenges remain to be addressed. This research investigates new VM migration mechanisms having better performance, robustness, and security. In particular, this work explores (1) simultaneous live migration of multiple VMs using distributed de-duplication and scatter-gather transfer of memory contents, (2) fault-tolerant VM migration to recover VMs after a failure during live migration, and (3) secure live VM migration techniques that reduce the performance impact of encryption and increase robustness against attacks.

This research benefits modern data centers by advancing the state-of-the-art in live VM migration technology. Broader impacts include technology transfer, outreach to local high schools, and involving undergraduates, women and minority students in research. Integration of research with education includes development of course modules, course projects, and an advanced topics graduate course.